Acquisition of a SQUID Magnetometer System for the University of Kentucky Materials Characterization Facility

9512589 De Long A Superconducting Quantum Interference Device (SQUID) magnetometer will be acquired and installed as part of the Materials Characterization Facility of the University of Kentucky. The requested system is configured to accommodate a variety of applications in materials science and engineering, chemistry, and solid state physics. Immediate users of the SQUID magnetometer will utilize it to investigate vortex dynamics in anisotropic superconductors, thermodynamics of low- dimensional conductors with charge-density or spin-density waves, synthesis and properties of novel fullerene-based compounds and polymers, and nanoscale magnetic particles for use in catalysis. The principal investigator in this project will develop novel, public domain software for the analysis of nonlinear susceptibility data (higher harmonics) which the current instrument does not have. This capability is increasingly important for the study of high temperature superconductors and of magnetic vortex dissipation. The SQUID manufacturer has agreed to cooperate fully in this endeavor. %%% A unique strength of this research is the software development which will be made available to the general community. The data analysis package will enable a large number of current SQUID magnetometer users to easily add this important capability without having to build or buy whole systems. ***